Research Facility Renovation

The funding will be used to completely modernize the core molecular biology/cytogenetics research facilities, upgrade central autoclave and water purification capabilities, provide reasonable amounts of personal laboratory space for the two newest faculty members, and significantly increase individual bench space, which is crucial for student research. These renovations will provide for research projects in cytogenetics, molecular evolution and systematics, plant growth and development, and studies or morphegenesis. These renovations will serve as a foundation for further development of a research- active Department. The improved working environment, modernization, will increase the opportunities for faculty members to obtain extramural funding and, thus, have an additional positive impact on opportunities for student research. Hofstra University is committed to providing opportunities for the less physically able student and for attracting members of underrepresented groups into scholarly research. The University has an excellent record of providing opportunities to minority students through special programs.